"Pulse-Echo Tomographic Microwave and Acoustic Imaging Systems for Quantitative NDE of Civil Structures and Materials"

9309775 Lee The objective is to conduct research for the development of synthetic-aperture tomographic imaging techniques and the implementation of microwave and acoustic prototype systems capable of quantitative NDE of civil structures and materials. The long- term goal of this research is the realization of high-resolution, cost-effective, portable imaging devices for accurate visualization of quantitative characterization of the condition of civil structures such as bridges, roadways, harbors, dams and buildings. These imaging devices can be used for not only existing structures for maintenance or safety considerations, but also for newly constructed facilities for verification and inspection purposes.